Improved Modeling of Particle Dry Deposition

The researchers will develop and test process-level models of the dry deposition of particles, with diameters of 100 to 2000 nanometers, to a range of surface types with focus on complex canopies. The relevant processes contributing to deposition (for example, Brownian motion, impaction, surface resistance, sedimentation) will be studied as a function of particle size, which is very important since dominant processes change as a function of particle size. The model will incorporate particle dynamics (for example, coagulation and growth) along with deposition, and methods will be examined to best represent treatment when the processes occur on similar time scales. A sensitivity analysis will be conducted to determine the predominant parameters that control particle deposition. The model will be compared to observations of particle deposition determined using eddy covariance techniques provided by researchers from the University of Helsinki. The improved model developed in this project will be compared with other existing models of particle deposition. Broader impacts of this project include the training and educating of graduate and undergraduate students, and the enhancement of international collaborations.